Scaling Effects in Centrifuge Models of Granular Slope Instability (Engineering)

This project will provide the principal investigator with the opportunity to conduct advanced research not possible at her home institution and to interact with students and colleagues through teaching, counseling, and mentoring activities in a way that demonstrates her career in science. This project furthers VPW program objectives which are: (1) to provide opportunities for women to advance their careers in engineering and in the disciplines of science supported by NSF and (2) to encourage women to pursue careers in science and engineering by providing greater visibility for women scientists and engineers employed in industry, government, and academic institutions.